Query Optimization in Heterogeneous Environment

Currently, users have difficulties in retrieving information which is stored in different types of database systems. Most users are not familiar with different query languages and may not be aware of the locations of data. The objective of this project is to facilitate query formulation and to speed up query processing in heterogeneous database environments, i.e. where different types of database systems, specifically, relational, object-oriented, deductive, and textual systems co-exist in an organization or across different organizations. To enable a user who is familiar with only a single query language to access information stored in different types of database systems, translators of query languages are being built. An intelligent data dictionary is constructed to facilitate schema integration and query translation. Query processing performance is optimized by application of logic-based methods, using knowledge about the types of queries previously processed. Parallel processing techniques across different systems are employed to provide further speedup. The resulting heterogeneous query processing system will find wide applicability as the networking of different database systems becomes widespread.